Indigenous Knowledge, Teachers and School Change: A Culturally-based Approach to Mathematics and Science (A Planning Grant)

9453949 Lipka This planning project, sponsored by the University of Alaska at Fairbanks, will prepare its target community, the Yup'ik, to submit a proposal to the Teacher Enhancement Program which will train Yup'ik teachers and Yup'ik elders to use the most up-to-date curriculums in science and mathematics. The activities supported by the grant are to: - identify personnel to strengthen the science component of the project; - coordinate activities with other NSF projects in Alaska; - identify, adapt and prepare teacher materials for a more comprehensive elementary science program; - continue to maintain close communication with the Yup'ik community; and, - develop a Teacher Enhancement proposal intended to implement the Planning grants long-term objectives. The matching funds, in support of the project, amount to 24% of the NSF grant.